Nuclear and Particle Properties of Light Nuclei

This grant supports a program of experimental research in nuclear physics by a group at George Washington University. Experiments are carried out at NIKHEF, LAMPF, Saclay. Detector development for the experiments already under way has been done on-campus at George Washington University, and additional development work is supported under this grant for detectors for use at CEBAF.